Space and Space-Time Models for Large Datasets

In this project the investigator focuses on linear representations of
Gaussian random fields. He considers models that either avoid explicit
computation of the covariance matrix or do so for relatively small
dimensions. The correlation functions of the considered processes are
very general, avoiding particular symmetries or stationarity. The PI
considers models that work in domains of general dimension and, in
particular, on the sphere, for gridded and non-gridded data. The PI uses
hierarchical methods of inference to account for measurement errors and
different sources of information. He develops statistically rigorous
procedures to summarize the information of dynamically evolving random
fields in a reduced number of time series and designs fast Monte Carlo
methods that take advantage of parallel architectures.

The investigator studies statistical models for spatial and
spatio-temporal processes observed at a large number of locations and
time steps. The PI's research addresses the need for increasingly
sophisticated models that can deal with different sources of
information, include expert opinion and handle effectively several
sources of uncertainty. While operating on large datasets, the PI's
models consider time evolving dynamics and spatial heterogeneity.
This allows for the analysis of phenomena on global scales, making good
use of state of the art inferential and computational methods. An
example of a problem where unified inferences from a variety of data
sources is needed is the prediction of future climate from different
climate models. Climate change prediction currently has a large societal
impact. This research provides tools to enhance our quantitative
understanding of the uncertainties involved in such predictions. This
will improve the ability of decision makers to make quality policy
decisions.